Non-Aqueous Molecular Processing of Sulfide Powder and Ceramics

The overall objectives of this research program are to synthesize novel precursors containing metal-sulfur linkages; to develop a fundamental understanding of the molecular processes involved in the formation of precursors and structural evolution of the sulfide ceramics; and, to correlate the precursor chemistry with the microstructure and optical properties of the dense ceramic. Cubic lanthanum sulfide is selected as the representative system in the studies. Other sulfides, such as titanium sulfide, zinc sulfide, and gallium sulfide, can also be selected for this study. %%% This proposed research aims to use modified metal alkoxide and metal thioalkoxide to synthesize sulfide ceramics of reactive metals which have strong affinity for oxygen. These metals include lanthanum, titanium, zinc, and gallium. This studies will seek fundamental understandings of the molecular processes involved in the formation of precursors and the subsequent evolution of sulfide ceramics. This study shall enhance our knowledge in the area of controlled chemical synthesis of non-oxide sulfide ceramics.